NPS CISR Scholarship for Service: Scholarship Track

This project establishes a scholarship program for master's students in the science and practice of information assurance. Selected students perform two years of federal service in the information assurance field upon graduation. Through courses, involving extensive laboratory exercises and projects, students learn first hand how to design, build, configure and manage systems and network security. Student complete thesis projects which permit them to explore a particular topic in depth and engage in research. The project addresses the current personnel gap in information assurance for the federal information infrastructure and enhances the program and capacity within the institution for further development.